Development of a Laser Laboratory at the University of Houston-Clear Lake

Development of a Laser Laboratory at the University of Houston- Clear Lake provides hands-on experience on electrooptics components and instruments for majors in the Electro-Optics program. The laboratory uses a number of projects using various kinds of lasers such as argon ion, CO21, dye, HeNe, and diode lasers. Some of the projects involve the studies of resonator designs, beam parameters, and frequency characteristics of these lasers. Others involve the applications of these lasers in holography, optical data storage, image processing, phase conjugation, harmonic generation, and self-focusing. Short projects are used to form a formal course "Electro-Optics Laboratory II" and the longer ones are used as "Independent Projects." In addition to the lasers mentioned above, some diagnostic instruments such as a digital oscilloscope, a personal computer, an spectrum analyzer, and a few detectors are used for the projects. The developed Laser Laboratory serves as a "model" that can be ported to other schools who emphasize or offer programs in optics or photonics.